Presidential Young Investigator

This is a Presidential Young Investigator Award to study floral differentiation. Dr. Gasser will focus on the regulation and function of genes whose expression is confined to flowers, with special emphasis on those gene with elevated expression in pistils.